Thermoplastic Matrix Fiber Composite Materials: A Small Machine for Die-Less Forming of Large Components

This proposal is to develop a new approach to the manufacture of thermoplastic matrix continuous-fiber composite materials by means of computer-controlled rollers which form an initially flat composite laminate into a complex shaped component. As the flat plate moves through the machine, only that region of the component which lies within the machine is hot and is being formed; all other regions are at room temperature and are rigid. Because of this, the envisioned forming machine can be much smaller than the component it is shaping. This approach eliminates the use of fixed dies which are employed in the current manufacture of this material. The proposed research plan includes initial forming experiments, process model development, sensor and control strategy development, design and building of a prototype forming machine, and demonstration trials with the prototype machine. The initial forming experiments will verify the concept in a bench test setup and will explore roller operation and control, determine forming limits, gain insight into the appropriate forming temperature, and gain experience with sensors. The process model will enable the integration of design and manufacturing for these components and will also be used for process control. The sensor development work is necessary to assure proper fiber alignment in the formed component. This new concept could lead to die-less forming of thermoplastic matrix fiber composite materials which would reduce costs through lower tooling costs and shorter lead times. Initial application is expected to be in fabrication of aerospace structures.